Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Statistics at the University of Michigan will purchase high-end computing
equipment which will be dedicated to the support of research in statistical sciences. The equipment
will be dedicated to the support of research in the following projects: (1) Optimizing interventions
in the behavioral sciences; (2) Statistical methodology for networks; (3)High dimensional
and functional data analysis with applications to bioinformatics and chemoinformatics; (4) Modeling
spatio-temporal network properties of the brain and (5) Stochastic dynamical systems and
their applications. Further, the proposed equipment will greatly enhance the overall research and
education infrastructure of the Department of Statistics.
The research to be supported by the planned equipment involves statistical methodology
that covers a wide variety of scientific disciplines, including medical and life sciences, health care,
information sciences and technology, brain science and infectious diseases. Scientific discoveries
would greatly benefit society and the economy.